Computer-Aided Engineering (CAE) for the Gas-Assisted Injection Molding Process

The primary objectives of this research are (1) to establish the scientific basis for gas-assisted injection molding, (2) to develop an engineering tool for characterizing the process, and (3) to improve the process technology with computer simulation, modern sensors, and design guidelines. The Phase I research proved the technical feasibility of simulating the mold-filling dynamics. It also demonstrated the various merits of computer-aided engineering (CAE) which enhance engineers' capability in handling all aspects of the process. In the Phase II research, both experimental and computational work are conducted to further the basic understanding of the process and integrated filling/holding/cooling/part-performance analysis. Collaboration with industry and universities is emphasized to jointly verify the analysis and consolidate engineering know-how. Successful completion of this research enhances competitiveness of the nation's polymer-processing industry by fully utilizing the new process with CAE.